REU Site in Sociology

This award provides funds to the Department of Sociology at the State University of New York at Stony Brook to establish a Research Experience for Undergraduates SITE. The program is designed to immerse a small group (8) of undergraduates in an active research environment spanning the areas of mass communication, gender studies, behavioral sociology, and the sociology of business. The goal underlying this initiative is to introduce students to on- going research in some of the most interesting and important areas of sociology. The program is intended to foster interest in, appreciation for, and skills in basic scientific research, especially for students who might not otherwise have an opportunity to participate in this type activity. Students will engage in a intensive eight-week hands-on research experience wherein they will be afforded the opportunity to learn, the phases of the search process, data gathering manipulation and analyses, theory testing construction, development of historical topologies of sociological phenomena, and relevant statistical and computer applications. Recruitment effort will center on small and regional colleges with large enrollments of minorities and women. Those selected to participate will reflect the recruiting focus. Support services, informal and structured experiences are planned to encourage graduate study and/or research-oriented careers.